Collaborative Research: AToL: Morphological and Molecular Phylogeny of the Decapod Crustaceans

Estimated to contain more than 15,000 species, the decapods are the most
species rich and economically important group of Crustacea, including
shrimp, crabs, crayfish, and lobsters. Furthermore, many extant families
have well-documented fossil records. Accordingly, the decapods have been the
subject of more published papers than have all other crustacean groups
combined, due in part to their species richness, economic importance, and
morphologic diversity. Given the prevalence of decapods in the public and
scientific mind, understanding the evolutionary history of this significant
crustacean group is crucial. Five principal investigators, K. Crandall, D.
Felder, J. Martin, C. Schweitzer and R. Feldman, will lead an international
group of decapod researchers in a collaborative effort to resolve
higher-level decapod relationships by integrating developmental,
morphological, molecular, and paleontological evidence. This international
research team, including both lead investigators and collaborating team
members, has collectively published on every major lineage of decapods, and
includes expertise in comparative morphology, systematic paleontology,
molecular, morphological (adult and larval), and combined data phylogenetic
analysis, as well as systematic theory. This group will collect molecular (~
20 genes) and morphological (~200 characters) data from nearly all 153 extant
families of decapods and morphological data from all 16 fossil families.
Data will be rigorously analyzed to estimate evolutionary relationships.
The resulting phylogeny will be used to test outstanding hypotheses
concerning decapod evolution and dates of divergences. Taxonomic schemes
will be accordingly revised. In addition, principal investigator N.
Hanegan, a science educator, will establish collaborative university and
school projects to integrate effective professional development for teachers
with classroom activities for students, centered on state biology content
standards through inquiry-based learning. High school students will be
engaged in research including question development, data collection, and
analysis while interacting with university researchers and other schools in
the Project Crawfish network. Undergraduates, graduate students, and
postdoctoral associates will be trained across the spectrum of techniques as
applied to decapod systematics. Project Crawfish will train teachers from
15 schools across Utah and Louisiana, impacting 22,500 high school students
(with high minority representation) concepts through experiential learning.
Both the educational and research components will utilize web-based
dissemination of research results and both will strive to produce extensive
peer-reviewed publications, including comprehensive monographic revisions.